Conference: Graduate Student Topology and Geometry Conference 2026

This award supports the 23rd annual Graduate Student Topology and Geometry Conference, to be held April 24-26 at Rutgers University in New Brunswick, New Jersey. The conference is designed by and for graduate students; organization is primarily student-led, and the majority of the talks are given by student participants. Such a gathering provides junior researchers from many institutions and geographic regions with an opportunity to present their work, to engage with research in the frontiers of geometry and topology, to interact with experts in their field, and to meet and network with same level peers and develop the seeds of future collaborations.

In addition to a full slate of student talks, the conference will also feature three plenary talks from established faculty Tara Holm (Cornell), Aaron Naber (Institute for Advanced Study), and Lisa Piccirillo (University of Texas Austin), along with six talks from early career faculty speakers Ricardo Caniato (California Institute of Technology), Nir Gadish (University of Pennsylvania), Robbie Lyman (Rutgers University Newark), Abhishek Mallick (Dartmouth), Allison Miller (Swarthmore), and Juan Muñoz-Echániz (Simons Center for Geometry andTopology). Careful attention has been given to the inclusion of a mathematically broad range of speakers capable of acquainting their audience with a wide array of cutting-edge topics in geometry and topology. The conference website may be found at https://www.gstgc2026.com/.